Nature's Lessons: Expanding Informal Science Learning Through Neighborhood Investigation

IslandWood, a national model for outdoor learning in the Pacific Northwest, proposes to partner with Boys and Girls Clubs of America to plan and pilot a multi-platform informal science initiative. The project will capture the attention of a broad audience, bring viewers into ecosystems they wouldn't otherwise experience, and illuminate the connections to everyday lives through 5-minute video shorts. Support materials for staff at informal learning institutions, and parents of children ages 5-11 who want to learn through neighborhood explorations will be the centerpiece of an online community of support. The scope of this planning project will be to create and evaluate support materials and a pilot video, and design an online environment. Over the year-long planning period the project will continue to develop the relationship with Boys and Girls Clubs of America with the intent to produce and distribute the project nationally beginning in 2010